Computer Networking: Local And Remote Telecommunication

This project recommends a two-phase plan focusing on the development of instructional and laboratory techniques to deliver training in computer networks. The first phase was designed to identify courses for the program of study and to introduce basic networking experiments into the curricula. Trident is requesting NSF funding for the second phase to expand the laboratory capability to include experiments in most of the networking techniques used in manufacturing and business distributed computing. The College proposes to utilize NSF funds for the purchase of hardware and software technology that enhances the hands-on approach, and expands networking competencies in the program of study. Steps for Phase II include purchasing and installing hardware and software requested in this grant application; integrating networking concepts and laboratory exercises into second year courses in the second year of the curriculum, assuring students have basic networking competency; develop and implement laboratory exercises in the certificate and associate degree programs in Information Systems; and conduct an ongoing evaluation.